CAREER: Differentiable Evolution: Efficient Automatic Design of Embodied Intelligence

The ability to trace errors through artificial neural networks was a revolutionary advance that laid the groundwork for “machine learning” in computer vision and language models. Research completed in association with this Faculty Early Career Development (CAREER) project will explore a similar opportunity for “machine evolution” in robots. While both robots and neural networks have existed since the 1940s, only the latter have been designed in a scalable manner using error tracing algorithms that automatically identify parts responsible for poor behavior and efficiently revise them to improve behavior. This project will work to generalize these efficient automatic optimization techniques to the design of robots and thereby attempt to realize novel robots with important new capabilities that are difficult or impossible to design by hand. In parallel, the project will develop a robot design game for education, outreach, and crowdsourcing designs.

This research project will look to determine the extent to which freeform robot design can be encoded into a differentiable representation that smooths the search landscape—and when and how this produces robots that are better adapted to their environment than human-designed robots. This intends to show how backpropagated design gradients lead to innovative nonobvious body plans that advance the state-of-the-art in adaptive robots, focusing on terrestrial and arboreal task environments. Analysis of the resulting search landscapes will attempt to illuminate the conditions in which useful embodied gradients, or subgradients of certain body segments, can be computed in robots and other physical machines with moving parts.